Interior-point algorithms for conic optimization with sparse matrix cone constraints

Conic optimization is an extension of linear programming in which the
componentwise vector inequalities are replaced by inequalities with
respect to nonpolyhedral convex cones. The conic optimization model is
widely used in the recent literature on convex optimization and provides
an elegant framework for extending interior-point algorithms from linear
programming to convex optimization. It is also the basis of popular
modeling systems for convex optimization.
The research on algorithms for conic optimization has mainly focused on
three types of inequalities, associated with the nonnegative orthant,
the second-order cone, and the positive semidefinite cone.
This restriction is motivated by symmetry properties that can be exploited
to formulate symmetric primal-dual interior-point algorithms.
However, large gaps in linear algebra complexity exist between the
three types of conic constraints, and this can lead to inefficiencies when
convex optimization problems are converted to the standard conic format.
This study considers approaches to improve the efficiency of conic optimization
solvers by considering a larger class of conic constraints,
defined by chordal sparse matrix cones, i.e., cones of positive
semidefinite matrices with a given chordal sparsity pattern,
and the associated dual cones of chordal sparse matrices that
have a positive semidefinite completion. These cones include as special
cases the three standard cones, but also several interesting non-self-dual
cones. Moreover non-chordal sparsity patterns can often be efficiently
embedded in chordal patterns and, as a consequence, sparse semidefinite
programs can be solved as non-symmetric cone programs involving
lower-dimensional cones than the positive semidefinite cone used in
semidefinite programming methods. The choice for chordal matrix cones is
further motivated by the existence of fast algorithms for evaluating the
associated barrier functions and their derivatives.
The investigator and his collaborators study nonsymmetric
interior-point algorithms for sparse matrix cones, building on techniques
developed for large-scale sparse matrix computations, in particular,
multifrontal and supernodal factorization algorithms and parallel sparse
matrix algorithms.

A wide variety of practical problems in engineering and science can be
formulated as nonlinear convex optimization problems, and solved using
algorithms developed over the last few decades.
The success of these techniques has created a demand for robust and
efficient algorithms for very large convex optimization problems,
especially for applications in machine learning, computer vision,
electronic design automation, sensor networks, and combinatorial
optimization. The problem sizes that arise in these fields often
exceed the capabilities of general-purpose solvers.
The work of the prinicipal investigator with his collaborators considers approaches to improve the scalability of interior-point
algorithms, an important class of convex optimization algorithms.
Freely available high-quality software implementations of the techniques developed in the
project are a product of the research.